Elastic Proton Form Factor Measurements

The first experiment to measure the ratio of the elastic and magnetic form
factors of the proton at large four-momentum squared, Q^2 with good
accuracy produced unexpected results. This experiment realized in 1998 at
Jefferson Lab used the recoil polarization technique, which takes advantage
of the fact that the transverse component of the recoil proton polarization
is proportional to the product of the 2 form factors, thus allowing accurate
determination of the small electric form factor. In a second experiment at
JLab in 2000, the measurement was extended to 5.6 GeV^2 , the results
confirmed the intrinsically different Q^2-dependence of the electric and
magnetic form factors of the proton beyond any doubt. The data from these 2
JLab experiments have been a challenge for theoretical models which attempt
to describe the proton structure in the non-perturbative domain of Quantum
Chromo Dynamics (QCD). As the simplicity of perturbative QCD may not be
encountered at accessible laboratory energies, an understanding of the
structure of the proton (and likewise of the other nucleon, the neutron)
requires the use of phenomenological models which depend in parts on data.
Nucleons are the building blocks of the matter we are made of and in which
we live. A full understanding of the structure of the nucleon in terms of
its quark and gluon constituents will be achieved only when we accumulate a
complete data base of its response to the electromagnetic probe, electrons
and photons, over a large enough Q^2-range; such experiment represent
the main part of the research program at JLab. We now have a third
experiment, recently approved with highest priority; it will extend the
range of Q^2 probed to 9 GeV^2.This grant will make it possible for
me to continue leading this project to and through the next phase, which
require new detectors (a new polarimeter to measure the recoil proton
polarization, and a new calorimeter to measure the associate scattered
electron) and will take 3 years to prepare.